Carbonyl Sulfide and Carbon Disulfide Emissions from Temperate and Boreal Forests Along an Acid Rain Gradient

Carbonyl sulfide and carbon disulfide are two long.lived sulfur gases that play an important role in the chemistry of the stratosphere and the energy budget of the earth. The magnitudes of the various sources of these two gases are not well established but current analysis suggests that: 1) biotic and not industrial sources appear to dominate the global carbonyl sulfide and carbon disulfide inputs to the atmosphere; and 2) upland soils appear to be a major biotic source. A large fraction of the upland soils of the world are covered by forests. In the Northern Hemisphere, many of these forests are receiving high inputs of sulfur and nitrogen associated with acid rain. It may be suggested that there is a potential relationship between the magnitude of anthropogenic inputs of sulfur and nitrogen to forest ecosystems and the magnitude of carbonyl sulfide and carbon disulfide emitted from these systems. The temperate and boreal forests that are under the influence of acid rain may be an important source of carbonyl sulfide and carbon disulfide to the atmosphere. This project is concerned with measuring carbonyl sulfide and carbon disulfide emissions from forest soils along an acid rain gradient in North America and to test the idea that the sulfur and nitrogen inputs to these forests in part control the carbonyl sulfide and carbon disulfide emissions.